Heegaard Diagrams and Holomorphic Disks

The proposal deals with studying Heegaard Floer homology, the new
invariants for three-and four-dimensional spaces constructed by the
investigator in collaboration with Zoltan Szabo. These invariants give
new insight into earlier invariants for spaces constructed using
gauge theoretic techniques: the Donaldson and Seiberg-Witten
invariants. In addition, they can be used to address older
topological questions, including specifically questions about Dehn
surgery on classical knots. This project aims to understand these
invariants better, and give further applications to knot theory and
the topology of three- and four-dimensional manifolds.

The introduction of equations with origins in mathematical physics
has lead to great advances in our understanding of the topological
properties of three and four-dimensional spaces in the past twenty
years. Further progress in this area is facilitated by an alternative,
more geometric understanding of the data derived from these equations.
These alternative more geometric methods have been the object of study
of the investigator, and the present proposal deals with further
developments of these methods.